The Dynamics of Change in Alaska's Boreal Forests: Resilience and Vulnerability in Response to Climate Warming

The cornerstone of the Bonanza Creek (BNZ) LTER research has been the state factor
approach, which allows prediction of ecosystem properties based on independent controls such
as climate, parent material, topography, potential biota, and time and interactive controls, i.e.,
processes internal to ecosystems that both affect and respond to ecosystem processes. The
intellectual merit of the proposed research involves expansion of this theoretical framework to
address processes underlying ecosystem resilience and vulnerability. Our objective is to identify
factors that buffer systems from radical changes in structure and functioning (resilience) vs.
factors that might precipitate changes to alternative states (vulnerability). This requires an
extension beyond the assumptions of steady state dynamics to ask under what conditions changes
in drivers might trigger a fundamental change in the nature of boreal ecosystems. The central
question of our research is: How are boreal ecosystems responding, both gradually and
abruptly, to climate warming, and what new landscape patterns are emerging?
We study the dynamics of change in several steps. (1) Climate sensitivity of physical
and biological processes to temporal variation in the environment, which defines the limits of
resilience to climate change; (2) changes in the successional dynamics caused by changes in
climate and disturbance regime, which define the points in the adaptive cycle of disturbance and
recovery at which ecosystems are most vulnerable to change; (3) threshold changes that are
likely to cause the boreal forest to function in a qualitatively new way and (4) integration and
synthesis in which we integrate these modes of climate response across multiple temporal and
spatial scales and explore their societal consequences.
The research design combines long-term observations, long-term experiments, and
process studies to identify ecological changes and to document controls over ecosystem
processes and successional dynamics in three landscape units: floodplains, uplands, and
wetlands. We test hypotheses about controls over ecosystem dynamics by manipulating selected
interactive controls. These plot-level studies are extended to larger spatial scales (watersheds,
regions, and the state of Alaska) in a hierarchical research design, using extensive measurements,
remote sensing, and modeling. Temporal scales of the research span hours (weather), years
(growth, populations), successional cycles (stand-age reconstructions), and millennia (vegetation
and climate reconstructions).
We explore societal consequences by identifying past and potential future changes in
ecosystem services that boreal forests provide both locally (e.g., subsistence resources) and
globally (e.g., carbon sequestration). Involvement in LTER cross-site comparisons enables us to
understand boreal processes in a broader context. To make this information available and useful
to a broader community, we work closely with schools, community outreach programs, the
broader scientific community, and resource managers through collaborations, outreach, and webbased
data management. Information management emphasizes secure archival of the information
we have collected, promotion of its use in synthesis, and development of web-based databases to
facilitate its use by the scientific community.